RESEARCH PLANNING GRANT: Low Power Loss, Low EMI, and Low Distortion Class-D Power Amplifiers

9629574 Smedley The goal of the research is to develop a new class-D power amplifier system based on the One-Cycle Control technique and to realize circuit integration. The new power amplifier should have low power loss, low EMI, and low distortion, wide bandwidth, large input and output dynamic range, robust performance, and simple circuitry. The research proposed here serves as preliminary research and planning activities in line with the goal. In this period, theoretical and experimental study will be conducted to further improve the ripple rejection capability in the high frequency range, to create low noise high speed differential integrator for One-Cycle Control to minimize the distortion, to find suitable method for soft switching to eliminate EMI and increase the power level, to investigate simple and effective input current shaping circuit to achieve unity power factor, to optimize the circuit configuration, and to provide engineering design information for realizing integrated circuit chips. ***